Strategies for Problem Solving

Mathematics faculty members at Southwest Misssouri State University (SMSU) will conduct a four week summer workshop in the teaching of problem solving, as applied to most scientific disciplines, for 30 junior high school teachers from southwest Missouri. Four key personnel, called "helping teachers," selected during the workshop, will receive additional leadership development and be actively involved in the further planning and implementation of this project. All participants will assist fellow teachers, to implement strategies in problem solving throughout their curricula during the academic year. Participants will construct lessons and teaching aids which demonstrate application problems in the fields of physics, astronomy, computer science, chemistry, biology, and/or geoscience. After implementing the problem solving materials developed in the workshop and evaluating them, a monograph of the activities considered effective will be produced and distributed to each middle and junior high school principal in the 24 county service area of Southwest Missouri State University. This project will become self-sufficient in 1988 when SMSU institutionalizes a course based on the workshop which will be made available and attractive to teachers under the State reimbursement law. The monograph and teacher developed materials will be available at the Problem Solving Materials Center at the University. A network of "helping teachers" and former participants will work together to conduct in-service workshops for fellow teachers. "Strategies for Problem Solving" clearly and comprehensively addresses the dire need for more creative and innovative strategies for mathematical problem solving. It acknowledges and seeks to address science and mathematics instruction in rural, minority and economically disadvantaged school districts.